Mathematical Theory of Control, International Conference, Bombay, India, Dec 10-14, 1990, Group Travel Award in Indianand U.S. Currencies

Description: This project supports travel of ten U.S. scientists to the Internatrional Conference on the Mathematical Theory of Control, planned for December 10-14, 1990 in Bombay, India. The objectives of the meeting are: to make a comprehensive in-depth presentation of the current status of the mathematical theory of control, to discuss its potential in theory and application; and to discusss Indian scientists' participation in this area. Topics to be included are: Pontryagin Maximum principle; Time-optimal control; Linear quadratic feedback control; Robot control dynamics; Control of large space structures; Stochastic control; Frequency domain theory; Infinite dimensional systems; Differential games; Adaptive control; Riccati equations; Controlability and observability; Computational techniques in optimal control; Nonlinear systems. Scope: This project supports participation of U.S. scientists in an international meeting where they and other participants from Europe and from India will exchange information on advances in the area of control. This is an area of increasing importance to industrialized countries as well as developing countries. The exchange of information is likely to benefit the U.S. participants by identifying potential collaborators from India. It is clearly of benefit to India since the exposure to leaders in the field should stimulate research in the field.